Undergraduate Research Experiences in Pure and Applied Physics

This award was made to Professor Kernell at the Old Dominion University, as part of the Research Experiences for Undergraduates program. It will support undergraduates working with research scientists on research projects of mutual interest. This program is designed to encourage further study in the sciences by undergraduates. It is a response to the growing need for trained scientists and engineers.